Classical Homotopy Theory, Simplicial Groups, and Related Structures

DMS-0305094
Frederick R. Cohen

The PI intends to study problems with origins in classical
homotopy theory as well as their overlap with function spaces,
cohomology of groups, and properties of classical configuration
spaces. The specific problems are as follows:
(1) Extend the P.I.'s recent solution of a 25 year old
conjecture of M.G. Barratt on the growth of torsion in
the homotopy groups of certain finite complexes.
(2) Analyze these structures for other finite complexes
through simplicial models for iterated loop spaces as
developed by the P.I., and R. Levi.
(3) In joint work of the P.I., J. Berrick, Y. Wong, and J. Wu,
continue to analyze the interplay between braid groups, and
the homotopy groups of the 2-sphere. These connections extend
in joint work with D. Cohen to analogues of classical modular
forms obtained from the cohomology of the braid groups with
coefficients in a symplectic representation.
(4) In joint work with A. Adem, and D. Cohen, continue to
analyze the structure of spaces of representations of
fundamental groups of complements of complex hyperplane
arrangements, and their associated vector bundles.

One of the main directions here is a connection between
Artin's braid groups, and the classical problem of enumerating
ways of continuously wrapping spheres of any dimension around
other geometric objects. The methods can be thought of as
enumerating topological properties of many particles, not
allowed to collide, moving through time. The methods
overlap with several mathematical structures given
combinatorially as well as number theoretically. These
methods involve the "geometry of braids", and how this
structure encodes counting problems through connections to
other mathematical objects.